Nuclear Magnetic Resonance Spectrometer for Undergraduate Chemistry and Biochemistry Education

The Department of Chemistry is purchasing a 400 MHz FT-NMR for use throughout the undergraduate curriculum. As a result of a recently completed an extensive review and revision of its curriculum the Department has reorganized the basic four core semesters and introduced new required courses in Synthesis and in Instrumental Methods of Analysis, together with a set of new elective courses. As perhaps the single most important structure determination method in chemistry today and as one of the best ways students can make observations directly tied to molecular structure, nuclear magnetic resonance spectroscopy is playing a central role in the revised program.